Urbanization and Language Change

ABSTRACT This project continues research begun under NSF grant BNS 88-12552 from September 1988 through August 1990. Both the earlier research and the present project explore the role of urbanization in language change. During the new funding period, the investigation will focus on how changes diffuse and how vernaculars evolve. Of special interest will be changes that reflect internal developments rather than external influence. For the ensuing funding period, new data collection will be minimal, consisting primarily of one additional telephone poll. Primary efforts will be devoted to analyzing data already collected, in examination of the major research questions of interest.